Workshop on Hybrid Technologies for Waste Minimization at Breckenridge, CO, July 15-16, 1999

This proposal requests support for a workshop titled Hybrid Technologies for Waste Minimization to be held July 15-16, 1999 at the Beaver Run Resort and Conference Center in Breckenridge, Colorado. The purpose of the workshop is to stimulate research into design methodologies/concepts that have the potential for leading to waste minimization in chemical process design and manufacturing. This is an important workshop for advancing aspects of this field as well as the strategic goals of the participating programs in CTS.